Head-Brain Injury Simulator

This Small Business Innovation Research Phase I project sets the foundation for the development of an graphic software package for simulation of head impacts. Head-Brain traumas are not only the most damaging injuries, but also one of the most costly. However, the existent research results and models in this field have not yet been transformed into diagnostic or evaluation tools. In Phase I, Cheshire CAT Computers will organize the existing head-brain injury data and models, and develop an integrated model of the skull-brain complex's response to direct impacts and sudden-massive accelerations. This model will become the mathematical engine for a software package to be developed in Phase II. The package will allow non-expert users to visualize and estimate brain injury likelihoods from the characteristics of the impact. It is anticipated that a functioning proto-type of this mathematical engine will be implemented by the end of Phase I.